Planning Grant Proposal: A Virtual Center for Child Language Acquistion Research

Abstract

A Virtual Center for Child Language Acquisition Research: A Planning Grant
Proposal

Barbara C. Lust

We aim to create a Virtual Center through the use of the internet to exchange materials and data across laboratories currently concerned with the study of language acquisition. The purpose of this Planning Grant is to initiate planning to develop the Infrastructure for this Virtual Center. In the planning stage, six US laboratories at six institutions that are concerned with children's first language acquisition, including childhood bilingualism, will form the core of this Virtual Center. The Cornell Language Acquisition Lab, as the lead institution, is in turn linked to the Sackler Institute for Developmental Psychology at the Cornell University Weill Medical College.

The proposed infrastructure is to be executed through the development and dissemination of new World Wide Web materials to support and develop collaborative cross-linguistic scientific primary research in all areas of language acquisition. These materials comprise a Virtual Linguistics Lab (VLL) which will include a set of internet-available materials to guide primary linguistic research in the area of language acquisition through a web-based graphical user interface. These materials provide the basis for exchange of knowledge and data across laboratories leading to collaborative research and educational initiatives which can allow each individual laboratory at each institution new power and scope through interaction with the Center.

Ultimately, the proposed Virtual Center will be extended to networking with other labs which focus on second or multi-language acquisition in the adult, and to other labs which are practicing neuroscientific methods of study of language acquisition. In addition, it will be networked with several international labs in India, Peru and Taiwan, as well as other countries, which will allow a wide expansion of the exchange of knowledge (including both data and scientific methods) in the field.

The Virtual Center is designed to allow infinite and open-ended dissemination of materials and data. The Planning Grant is intended to establish the prototypes for the required infrastructure and the necessary preliminary interaction among collaborators in order to design and construct this infrastructure.